Doctoral Dissertation Research in Political Science

This Doctoral Dissertation study uses interest group theory, especially the relationships between the state and functional groups in society, to explain how natural resource policies are made in the developing world. Specifically, the research posits that the state, being at the pinnacle of a system of limited and structured, albeit meaningful, public invlovement, seeks that type of bargaining with interest groups within society which furthers its own power and endurance. This conceptualization puts developing world conservation programs into a broader political context, and links an understanding of environmental policies to an understanding of the broader political power relationships within the polity. The project test these and related propositions about African environmental policymaking, using Zimbabwe's elephant conservation regime as a case study. Using survey research, interviews, and contextual data, this research empirically probes the nature of wildlife conservation policymaking in Zimbabwe, with a firm theoretical eye toward generalization about conservation policy regimes in the developing world, especially the role of group-state bargaining in policymaking. The research will be conducted under the auspices of the University of Zimbabwe's Centre for Applied Social Sciences (CASS), which has been executing research on the human dimensions of wildlife conservation for over three years.